Oceanographic Instrumentation 2001

0099461
Diebold
This award to Lamont-Doherty Earth Observatory of Columbia University in the City of New York provides instrumentation to significantly improve the navigation capabilities of the research vessel Maurice Ewing, an NSF-owned ship operated by LDEO as part of the University-National Oceanographic Laboratory System research fleet. The navigation and quality control software and instrumentation supported here will allow major improvements to survey operations for geophysical research. Other items, including spare magnetometer and upgrades to the shipboard computing network, computers and peripherals, will modernize these systems and improve capabilities provided to shared-use researchers funded by NSF from throughout the U.S. These improvements will be of substantial advantage to marine scientists using the ship in their research during 2001 and future years.
***